Mean Field Equilibria of Dynamic Games: Theory and Computation

This project studies an approximation methodology known as mean field equilibrium (MFE),
which can be used for management, design, and control of large dynamic economic systems
such as financial markets, power markets, sponsored search auctions, online marketplaces,
and resource sharing systems such as cloud computing platforms.
In a mean field equilibrium, individuals
postulate that fluctuations in the empirical distribution of other
players' states have "averaged out" due to large scale, and thus
optimize holding the state distribution of other players fixed.
MFE simplifies system description, making optimization, design, and
control possible. Such a simplification in the equilibrium concept
delivers the best of both worlds: not only is it more believable, but
it provides a tool to understand the impact of parameter and design
changes on the performance of these complex dynamic systems. This
project develops methods to mathematically characterize regimes where MFE
is a viable equilibrium concept, as well as to develop algorithms to
compute and learn MFE.

If successful, the research results could be employed in practice
to leverage the huge advances in computation and availability of big data
generated by complex economic systems for developing
more structured and principled prediction of the impact of design
changes. In support of this goal, the project includes efforts to make MFE
techniques accessible to engineering students through educational
materials and course curriculum.